Sensitivity Study of a Three-Dimensional Ice Sheet/Bedrock Model Designed for Coupling with an Atmospheric General Circulation Model

9322518 Saltzman This award is for support for an investigation of the distribution of methanesulfonate (MSA) in the Greenland Ice Sheet Project Two (GISP2) ice core in order to assess the relationship between biogenic sulfur emissions, atmospheric aerosols, and climate change over the North Atlantic Ocean. This project is primarily directed at completing the GISP2 MSA record from Summit, Greenland which will cover an entire glacial/interglacial cycle. The GISP2 record has already demonstrated dramatic differences between glacial/interglacial trends in Greenland as compared to Antarctica. This work will provide new information about the factors controlling the variability in the atmospheric sulfur signal and its relationship to other changes in atmospheric chemistry. Samples from two other Greenland ice cores (Camp Century and Dye-3) will also be studied to examine climate-related variability of MSA during the Holocene. ***